Research and Innovative Design, Diagnostics, and Maintenanceof Constructed Facilities

This project will investigate the structural behavior of fiber glass reinforced plastic reinforcing bars and other synthetic products for use in construction, and investigate nondestructive evaluation techniques for construction material.